Lakota Land 2 - Sharing Lakota History

This project is a continuation of the NSF funded Lakota Land Project, which had students of the Oglala Sioux Tribe use modern GPS and GIS tools to map culturally important sites of the Pine Ridge Reservation. This continuation project focuses on sharing the mapping activities and historical information with partners and/or institutional participants, such as Alliance of Tribal Tourism Advocates (ATTA) and Oglala Lakota College's (OLC) TV Production Program, local youth organizations and other geospatial data users. These activities focus on accomplishing two main goals: 1. Protect, preserve and promote Lakota history and culture through geosciences. 2. Enhance the relevance of geosciences among broad segments of the Indian population. Main activities include finalizing, reviewing, maintaining and publicizing the Lakota heritage through an online map displaying history in English and Lakota language, film production, educational kiosk and tourism packages. The online map will be a tool to acquaint tribal and nontribal members with geospatial technology, Lakota history and Lakota language. OLC's TV Production Program will record Lakota historical, business, and tourism sites, Lakota culture, traditions and Lakota language. Videos will be hyperlinked to the online interactive map. ATTA will review and implement the maps, videos and documents of historical sites. They will prepare a diverse tourism tour package and an educational kiosk for the local community and a National and International audience.